Planning Grant - Minerals, Mining, and Mexico: A Cultural Bridge to Interest in Science

9553874 Wallace The Arizona Mineral Museum and the Flandrau Science Center at the University of Arizona will use this planning grant to develop a new interpretive exhibit "Minerals, Mining, and Mexico: A Cultural Bridge to Science." The University of Arizona Mineral Museum is about to receive the Miguel Romero mineral collection which is one of the most complete collections of Mexican minerals that exists. It contains over 8500 specimens and this collection plus their present collection will bring into being one of the finest regional mineral collections available. With it they will develop exhibits and programming that explore minerals and mining of Mexico and the southwestern U.S. With this planning grant, they will explore the exhibition and programming opportunities to realize their vision of creating a "living and engaging museum that promotes an understanding of basic science principles and an appreciation for the beauty and economic importance of minerals in the context of the historical and cultural perspective of the New World." The planning activities will include meetings of the advisory committee, visits to other museums, and development of two prototype exhibits. At the end of the twelve-month planning period they will have an overall script for the exhibit and recommendations for individual exhibit units, a traveling exhibit version, and curriculum materials for use by formal educators.